Enhancement of the Chemistry Curriculum by the Addition of an Atomic Absorption Spectrophotometer

Delta State University is equipping a laboratory to measure the quantities of toxic trace metals in the environment by atomic absorption. Undergraduate students collect water and soil samples in a 19 county area for analysis and their results are used in a